FRG: Collaborative Research: Geometric Flows and Applications

Proposals DMS-0354639/0354621/0354737
Title: FRG- Geometric flows and applications
P.I.s: R.Hamilton, P.Daskalopoulos (Columbia University)/
H-D Cao (Lehigh University)/ S-T Yau (Harvard University)

ABSTRACT

Geometric flows give rise to nonlinear parabolic partial
differential
equations. It can be used to understand how a geometric structure evolves
to a more canonical one or the union of canonical structures. In most
cases, there
is a tension field which governs the evolution. The most notable cases
are the harmonic
map flow, the Ricci flow, the mean curvature flow, the Gaussian
curvature flow, and the
inverse mean curvature flow. The long time existence and asymptotic
behavior of the geometric
structure has revealed deep understanding of geometry and topology. Even
short time existence
have immediate consequence of smoothing out the structure. For example,
the short time existence of the
Ricci flow for complete manifolds with bounded curvature provides
smoothing effect to
approximate the metric by metrics with bound covariant derivatives of
curvature.
All these geometric flows have many common features, most notable is the
fundamental role
of solitary solutions of the flow. It gives strong understanding of
singularity of the nonlinear
system and lead to good estimates: like the Li-Yau-Hamilton estimate
which play important
roles on singularity formations. While working on the Ricci flows, there
are constant insight by
working on the mean curvature flow and other geometric flows, and vice
versa. The works of
Huisken and Sinestrari will be important for this purpose. And so is the
work of Huisken-Ilmanen
on the inverse mean curvature flow. The most recent breakthrough of
Perelman will of course be the central piece
of discussion for the whole project. Not only that we like to make sure
the whole program of
geometrization for three manifolds, but also we like to strengthen and
apply the technique to various
important geometric situation: the Ricci flow for compact Kaehler
manifolds with positive Chern
class, and to four dimensional manifolds. Note that the recent work of
Cao-Chen-Zhu has
already pointed to the importance of the argument of Perelman in the
Kaehler case. Perelman's
most recent work in the Kaehler case made further progress. We hope to
incorporate it in a bigger picture of
Kaehler geometry. When one studies the Kaehler geometry, a very
important ingredient to understand
Mirror geometry for Calabi-Yau manifolds is the study of special
Lagrangian submanifolds. This
has been pursued by M.- T. Wang using the Lagrangian mean curvature flow .
The existence and regularity of such submanifolds will play important
roles in the future of geometry. As
was mentioned above, the inverse mean curvature flow will also be
important for our discussions as it was
demonstrated by the work of Huisken-Ilmanen in solving the Riemannian
Penrose conjecture. In terms
of general relativity, Bray, Huisken, M.-T. Wang and Yau will be very
much involved in the analysis of
various flows that appeared. (Huisken-Yau used the mean curvature flow
to study center of gravity, Bray
studied the Penrose conjecture) As a whole, there will be close
cooperation and many students will be
trained under this joint program. We also expect to have joint
consultations. Applied mathematicians will
also be consulted on questions like porous media flow, diffusion of
oil, imaging sharpening, etc.
Daskalopoulos has been active on porous media flow, the Gaussian
curvature flow and related questions.